CEDAR: Multi-Instrument Studies of Equatorial Aeronomy (MISETA); Continued Measurements of Equatorial Upper Atmosphere Winds with a Fabry-Perot Interferometer

MISETA (Multi-Instrumented Studies of Equatorial Thermosphere Aeronomy) is a program to systematically study ionospheric and thermospheric properties in the equatorial regions, particularly spread-F, ionospheric irregularities, and the equatorial electrojet. It is a joint program involving Clemson University, Boston College, Dartmouth College, and Boston University. The investigators will continue to conduct coordinated measurements at Jicamarca, Ancon, and Arequipa, Peru, using a variety of instruments, including coherent and incoherent scatter radar, digisonde, spaced scintillation receiver, Fabry-Perot interferometer, and all-sky imager. Most of the instruments are designed to run continuously, but the study also requires more intensive experimental campaigns in which additional instruments are deployed on a temporary basis. One campaign has been conducted as part of the previous award, and one more campaign will be conducted as part of the continuation. The role of Clemson University in the program is to organize the program, operate the Fabry-Perot interferometer, and conduct scientific analysis of the data.***